esidential Young Investigator Award: Ecosystem Approach to deling of Biological Processes

This is an award to provide support for research to be initiated by this Presidential Young Investigator who was nominated under conditions contained in the Program Announcement NSF 89-58. The goal of this investigator's research is to increase her understanding of biological treatment processes used in treatment of wastewater as components of ecosystems. This approach will be used by her to study the interactions of chemical, physical and biological processes including interactions of involved microorganisms with each other and with the environment. Examples include extending her work on the role of pH variations in algal biofilms to nitrification, denitrification and methanogenesis in wastewater treatment processes. Results of this research are likely to be utilized in engineering design of processes and systems for removal of contaminants from wastewater. The results may be useful in determining how nitrogen can be removed from wastewater by use of a single biofilm that includes both aerobic and anaerobic processes within it.